Planning Grant for the Participation of the Physics ResearchCommunity in Undergraduate Curriculum Development

This is a one-year award to the American Physics Society (APS) for a series of workshops on undergraduate curriculum development in physics. The PI's are Dr. Brian Schwartz, APS and Dr. Judy Franz, American Association of Physics Teachers. They will hold a workshop for physics researchers to organize efforts to improve the undergraduate physics curriculum. Two additional workshops will be held in specific sub-disciplines of physics. The sub-disciplines will be determined by the outcome of the general workshop.